AON PI Meeting Report

This award will support the preparation of a report on the Third Arctic Observing Network (AON) PI Workshop that was held in Boulder, Colorado, from 30 November 2009 to 2 December 2009. The report will summarize the progress and achievements of AON during the 4th International Polar Year 2007-2009, and provide guidance on the future development of AON.